Research in Elementary Particle Physics

A broad program of research in elementary particle physics and an associated education and outreach program is proposed by a research group of the University of Chicago Physics Department. Their program includes: the ATLAS detector construction project, which will be at the energy frontier at CERN's Large Hadron Collider; the CDF collaboration that shared in the discovery of the top quark at the Fermilab proton-antiproton collider and is operating at the current energy frontier; the OPAL collaboration, which was operating at LEP, the highest energy electron-positron collider, which is performing stringent tests of theoretical models; and the KTeV experiment, investigating the asymmetry of matter and antimatter in the universe.
Education and Outreach activities include TAMS (Teacher's Academy for Mathematics and Science) which is becoming internationally known for its positive impact on under-achieving schools, and Quarknet, which is making high- school teachers a respected part of the particle physics research community.